Radical Innovation Summit

This workshop, hosted by the National Center for Supercomputing Applications (NCSA) and the Institute for Computing in Humanities, Arts and the Social Sciences (I-CHASS), convenes leading practitioners and scholars of innovation to collectively consider how education in the US might be reconfigured to both support and teach innovation as a core curriculum mission, with a focus on STEM education. Workshop participants identify and articulate strategies for creating and sustaining learning environments that promise the development of innovative thinking skills, behaviors and dispositions and that reward students, faculty and administrator for practicing and tuning these skills. A wiki or other private online space will be created where participants will be encouraged to continue discussions or comment further on ideas generated over the course of the workshop. Mapping social networks of and among participants provides insights into how innovation practices are shared and spread across relationships and networks. Findings from the workshop will be made available to others through a public web site.